Gordon Research Conference on Computational Aspects of Biomolecular NMR to be held May 6-11, 2001 in Barga, Italy

Case, David
MCB-0090186

This grant provides partial support for the 2001 Gordon Research
Conference on Computational Aspects of Biomolecular NMR, to be held May 6-11, 2001, at the
conference center "Il Ciocco", in Barga, Italy. The conference chairs are Drs. David
Case and Michael Nilges. The purpose of the conference is to bring together scientists
working at the forefront of biomolecular NMR, to foster the free exchange of cutting-edge,
pre-publication work, and to establish directions for exploiting computation to solve
difficult problems in the field. Gordon Conferences provide a valuable means of
disseminating information and ideas in a way that cannot be achieved through the usual
channels of communication, that is, publications and presentations at large scientific
meetings. This meeting is the second of what is intended to be a biannual conference.
Computation plays a crucial role in virtually every aspect of biomolecular NMR, from data
acquisition and analysis to structure determination. In order to reflect the full breadth
of the field, a broad, multinational representation of scientists engaged in both
experiment and computation has been assembled. Central themes of the conference will be
the interdependence of experiment, theory, and computation, and the contributions that
computation can make to advancing the frontiers of biomolecular NMR. Sessions will be
devoted to new sources of structural and dynamical information, computer-aided assignment,
treatment of dynamic disorder and structural heterogeneity, intermolecular interaction and
drug discovery, and NMR and structural genomics.